Planning Project for the Center for Aseptic Processing and Packaging Studies

This project is studying the feasibility and viability for an Industry/University Cooperative Research Center for Aseptic Processing and Packaging Studies at North Carolina State Univesrity in cooperation with Virginia Polytechnical Institute and State University. Potential organization, operational, and policy options for a potential center are being studied. Industries' research interests will also be studied to determine the research that the university could address and obtain industrial support.